Partnership for Leadership

9355774 Alberts The National Academy of Sciences' National Research Council's "Partnership for Leadership" project will provide support for: o coordination of all NAS/NRC education activities through the Coordinating Council on Eucation; o activities of the Mathematical Sciences Education Board to continue studies and disseminations efforts on implementing the National Council of Teachers of Mathematics standards; o completion of the national science teaching and assessment standards; o reform of undergradiate education through support of the Board of Engineering Education and the Committee on Undergaduate Science Education; and o continued identification of appropriate new directions for NAS/NRC. ***